ADVANCE Institutional Transformation Award: The Path to Leadership: Collaborative Institutional Change

California State Polytechnic University, Pomona (CPP) will create recruitment, retention and development systems to enable women in STEM to advance to leadership. Activities are proposed in four areas:

Institutionalize policy/practice structures for attracting, retaining and advancing faculty. Activities include a Provost Advisory Committee, assessments, ADVANCE Scholars, and information resources.

Increase the number of female STEM faculty, and in particular, women of color. Activities include improving search committees and recruiting, a Partner Placement Program, and partnerships with minority serving institutions.

Advance female STEM faculty in their careers by enhancing the RTP process. Activities include systematic pre-tenure performance feedback; professional learning communities; and faculty development in teaching, research and service.

Increase STEM women's capacity to influence decisions and policy. Activities include mentoring, leadership internships, and developing multiple paths to leadership.

Many of the strategies have not been tried at a primarily teaching university. Features that will add knowledge about advancing STEM women in academia are collaboration with minority-serving institutions to recruit faculty, transformation of RTP into a learning process; and a broad definition of leadership that allows faculty to develop according to
their own interests.

The program will increase the representation of women, particularly under-represented minorities, in positions at CPP. Strategies will be evaluated for effectiveness so successful approaches can be disseminated and replicated. The project will promote teaching and research by working to attract and tenure STEM women and will enhance partnerships through collaboration with minority-serving institutions.